Travel Grant: EPQHS-6 Conference, Tata Institute, Mumbai, India, January 7 - 9, 2016

The 6th Conference on "Emergent Phases in Quantum Hall Systems" (EPQHS-6) will take place
in Mumbai, India from January 7 to January 9, 2016. The Conference focus is on quantum phases found in
two-dimensional electron systems. Main goals of EPQHS are to bring together key scientists as well
as young researchers, to evaluate recent developments and to discuss further research directions.
The organizing committee envisions a meeting with approximately 30 high level lectures and
with a total of approximately 150 participants. Its format will enable active discussions
among participants. This proposal requests travel support of students and postdocs from the US to enable their participation.